Parents as Partners -- A Planning Grant

9705446 McBride The Maine Mathematics and Science Alliance is conducting a 12-month planning project in preparation for a Parental Involvement project. The planning activities include conducting a needs assessment, reviewing literature, refining goals, writing measurable objectives, identifying and piloting strategies, designing plans for evaluation, implementation, and dissemination, and overseeing the development of a full proposal. A broad-based planning team is convened to accomplish the planning activities.